NSF Travel Grant Support for IEEE International Conference on Computer Communications and Networks 2011 Conference

This award funds the conference registration and travel-related costs of 10 graduate students from the U.S. to attend The 20th IEEE International Conference on Computer Communications and Networks (ICCCN 2011). ICCCN will be held in Maui, Hawaii in August, 2011 (http://icccn.org/icccn11/).